Description and Analysis of Overflow Observations in the Denmark Strait

0099275/Sanford

This project will support processing and analysis of data from the
Denmark Strait Overflow, collected during an expedition to the Denmark
Strait. These data will be used to produce a description of the
energetics, eddy characteristics and basic dynamical parameters of the
Denmark Strait Overflow. The results will be used to test the
predictions of existing theories of hydraulic control in dense
overflows. The observed data will also be used to examine the structure
of eddies in the Denmark Strait. The properties of the flow in and near
the eddies will be compared with three existing theories of eddy
formation in an effort to determine which one is most applicable to the
Denmark Strait.